A Workshop for the Development of Long-Term Activities for Minorities in Science and Technology

This award is funded as a special project to support a workshop/conference to develop strategies to implement the recommendations of the successful conference "Long-Term Activities in Science and Technology for Minority Institutions," held at Lake Arrowhead, Georgia in 1984. The theme of the Arrowhead Conference was the development of science and technology strength in the minority community by attacking the problem at four levels -- pre-college, undergraduate, graduate, and increasing cooperation between HBCUs and majority universities, industry, and private corporations. The workshop/conference is intended not only to develop implementation strategies for the Arrowhead Report, but to expand the report to include greater emphasis on increasing Hispanic, Native American, and female participation in science and technology.